SSC: "JR-TEAMS (Joint Research & Teaching for Aspiring Minorities in Science)"

SSC-9450447 U of Arkansas Little Rock Little Rock, AR Douglas, Marian, Robert Swindell, David Rainey, Philip Kehler, Andre Rollefson, Hirak Patangia, Jackie Garner and Janet Lanza "JR-TEAMS (Joint Research & Teaching for Aspiring Minorities in Science) The University of Arkansas at Little Rock College of Science and Engineering Technology will offer a four-week summer program for minority junior high students who have an interest and aptitude for science, engineering and mathematics (SEM). This commuter program will be conducted during the first year on the weekdays beginning June 6, 1994 through July 1, 1994. The goal of this program is to increase the number of minority students from the Central Arkansas area who prepare themselves in secondary schools to pursue and successfully complete the study of science and engineering at the university level and pursue SEM careers. Mentors, role models, interaction with TEAMS, and field trips will be an integral part of JR-TEAMS. ***